An Experimental Study of Quadruped Gallops

Abstract

IIS-9907121
Waldron, Kenneth
Ohio State University
$156,958 - 12 mos. (1/3 of funding is from ECS division of Engineering Directorate)

A Study of Quadruped Gallops by Simulation and Experimentation

This is the first year funding of a three year continuing award. The
proposed project includes simulation, design, construction and testing
of a legged robot in gallop gaits. The project will test theoretical
models of the mechanics and control of galloping developed by the
authors and others. The project will break new ground by being the
first attempt to operate an artificial machine in a true gallop. Other
new departures will be numerical and experimental investigation of
strategies for rapid starts and stops, and for sudden changes in
direction. A gallop is more complex than the symmetric gaits used in
previous running quadrupedal robot studies because it is a single-foot
gait with the feet touching down individually, and because it is
obviously asymmetric. The asymmetry results from the non-linear
interaction of the ballistic trajectories of the body between footfalls
and the pitch and roll movements of the body resulting from off-axis
foot thrusts. Control and stabilization of galloping will be
extensively studied in numerical simulation before implementation in
hardware. The same approach of simulation followed by experimental
testing will be used to study strategies for rapid starts, stops and
changes of direction.